SBIR Phase I: Ice-release Coatings

This Small Business Innovation Research Phase I project aims to develop a low cost
and durable ice-release coating to mitigate icing-related problems encountered by air
transportation, power transmission, wind energy industries, and appliances such as
refrigerators, freezers and air conditioners. Current de-icing products include
environmentally problematic de-icing fluids, energy inefficient electrical heating, and
deicing coatings with high cost but poor mechanical toughness. The proposed coating is
based on (1) a recent fundamental study that revealed a heretofore unrecognized
combination of critical parameters controlling ice adhesion, (2) a novel hybrid coating
model that includes nanoscale and mesoscale contributions to weakening ice adhesion,
and (3) a “soft surface / tough bulk” coating that utilizes strong mechanical properties of
a conventional, low cost polymer and a low surface energy polymer modifier. The
proposed coating product will reduce costs and mitigate damage to energy,
communication and transportation industries as well as reducing maintenance on
refrigeration appliances. “Green chemical engineering” is targeted for minimum VOC
and short chain fluorocarbon constituents that are environmentally benign.

The broader impact/commercial potential of this project include (i) de-icing
applications in ground and ocean transportation, such as easy ice release for automobiles
and ships, and in housing to prevent ice accumulation, for example on roofs; (ii) easy
release of hard fouling for ships and ocean platforms;. Potential customers include
Department of Defense for US Air Force and Navy, transportation and energy industries,
and the petroleum industry.